Geometric Reasoning in Computer Integrated Building Construction

Research progress in computer-aided engineering has brought the construction research community to a significant front. A most compelling issue on this front is representation of and reasoning on geometric information. Such geometric reasoning underlies the dominant intellectual issues of representation, reasoning, planning, and action in the construction domain. In spite of importance of geometric reasoning to many computer-integrated construction functions, it has until very recently received only fragmentary attention, insufficient to meet current demands. This research will develop a body of theory for geometric reasoning in the area of computer-integrated construction and will implement a series of geometric reasoning programs to demonstrate that body of theory. Specifically supported by these reasoning programs will be the planning, design and construction of building systems. Technically supporting the research is an architecture for geometric reasoning. Included in this architecture are capabilities for decomposition of geometric objects to their composing features, for representation at multiple levels of abstraction, for class based representation and reasoning and for reasoning based upon constraint satisfaction.